SuperDARN (Dual Auroral Radar Network)

This proposal investigates an extended longitudinal chain of high-latitude HF radars in order to obtain global-scale coverage of high-latitude ionospheric convection and related phenomena. This chain will provide continuous, two-dimensional observations of high-latitude plasma convection within a field of view that will eventually extend over as much as 14 hours of magnetic local time and 65o to 85o in invariant latitude. The SuperDARN network consists of four pairs of radars sited at five locations extending from Alaska to Finland; this proposal will study the first of these pairs. This network will provide insight to studies in large-scale structure and dynamical evolution of the high-latitude ionospheric convection pattern and its effects on the structure and dynamics of the upper atmosphere. Further, the network will aid in studying global distribution and transport of high latitude ionospheric irregularities as well as the large-scale distribution and propagation gravity waves excited by high-latitude sources.